Assessment of Reanalysis Products for use in ACCE

9529763 Walsh This project is a contribution to the Atlantic Circulation and Climate Experiment (ACCE), a component of a combined effort on the part of NOAA's Atlantic Climate Change Program (ACCP), and the U.S. World Ocean Circulation Experiment (WOCE) Program. Three major centers, including NOAA's National Center for Environmental Prediction (NCEP), are now producing reanalyses by assimilating observational data at frequent intervals into frozen versions of numerical weather prediction models. Surface fluxes can be routinely calculated from these reanalyses. In this project, the PIs will assess the utility of reanalysis-derived flux fields relative to those derived from historical ship observations, satellite data, in-situ measurements made in ACCE, and elsewhere. A major focus will be on determining their utility for driving ocean and climate models.